Request for NSF Hydrologic Sciences (HS) Support for the GEWEX/iLEAPS International Scientific Conference on the Global Energy and Water Cycle, Melbourne, Australia, 24-28 Aug 2009

Funding requested from NSF will be used to support travel by young and early career scientists to the GEWEX/iLEAPS International Scientific Conference on the Global Energy and Water Cycle and early career workshop.This conference will provide an exciting platform in which to present and discuss the latest scientific developments in the area of water, energy, and biogeochemical cycles.